Using CAVE Technology to Explore High-Dimensional Data

This research explores visualization methods for examining high-dimensional data with low-dimensional projections with CAVE Virtual Reality technology. Dynamic graphical methods for exploratory data analysis are examined in a 3-d immersible environment. The methods are based on generating motion graphics from continuous sequences of 3-d projections of high-dimensional data. Interactive user control is considered in the form of controlling the path of the 3-d sequences in the data space. Virtual Reality offers the construction and realization of an artificial 3-dimensional world that has important potential use in scientific areas. Statistics is the science of making sense of complicated data. For example, typical environmental data sets may contain thousands of data values on hundreds of variables. Graphical methods are needed for exploring and determining relationships among variables such as tree crown health, topography, temperature, population density and atmospheric pollutants. This research explores statistical graphical methods for visualizing many variables simultaneously using CAVE Virtual Reality technology. The research relates to the Federal Strategic Area of Improved Environmental Quality in that the examined methods can provide insights for examining spatially measured environmental data. It also relates to the Federal Strategic Area of Harnessing Information Technology because it examines using Virtual Reality technology for organizing and synthesizing information.